GOALI: Manufacturing Simulation Study at the DaimlerChrysler Technology Center

This Grant Opportunity for Academic Liaison with Industry (GOALI) - Faculty and Students in Industry component - award provides support of an Oakland University Systems Engineering Student for a one semester visit with the Advanced Manufacturing Technology Group at the DaimlerChrysler Technology Center. The research project is to study the development of a supervisory system which monitors the physical manufacturing systems and compares its behavior with that of an equivalent computer simulation model. It is proposed that if the behavior of the physical manufacturing system varies from that of the computer simulation model due to the modifications made to the physical system, the supervisory system will identify these changes and attempt to modify the model to account for them.

The results of the study will be communicated through a series of company briefings, as well as publications in appropriate academic journals.